As Our Grandparents Told It: Strengthening Gwichin and Koyukon Athabascan Languages Through Storytelling

This is a proposal to fund the travel of two Alaska Native researcers, MA student Allan Hayton and Tribal scholar Dewey Hoffman, to present their research on Gwichin and Koyukon Athabaskan language and culture at the international World Indigenous Peoples Conference on Education in Cusco, Peru, August 2011.